8th U.S.-Japan Workshop on Bridge Engineering: Design Modeling, Experimentation and Performance

The U.S.-Japan Workshop on Bridge Engineering is a meeting between American and Japanese bridge engineers, which is conducted under the auspices of the U.S.-Japan Panel of Wind and Seismic effects of the UJNR program. This meeting includes a two-day workshop with technical presentations of the participants related to recent advances of bridge engineering and a study tour of bridge structures and organizations. Seven meetings have been conducted so far, and all of them have been proven to be a very fruitful and productive experience for the participants of both countries. The Workshop will be held in Illinois in May 1992.